CSR: SHF: SMALL: Efficient, Low-Latency Networked Storage

From key-value stores to distributed file systems to distributed
databases, networked storage underpins modern Internet services.
Networked storage allows programmers to separate logic and data, enables
high throughput scale out, and takes advantage of increasingly fast
datacenter networks. However, in the big data era, networked storage
faces a new challenge: The amount of data accessed per user request is
growing rapidly; outpacing processor speeds and DRAM capacity.
Increasingly, user-perceived response times are dominated by the slowest
storage accesses, i.e., the 99th percentile tails. Networked storage is
notorious for fat tailed response times.

We are developing networked storage systems that are 1) always fast and 2)
cost efficient. A key approach is to understand and selectively use
replication for predictability (or cloning). In this approach, clients
issue redundant storage accesses against independent hardware resources.
The first to respond provides the result. Replication for predictability
reduces client-perceived variability, leading to always fast response
times. Our implementations are especially cost effective at scale. To
lower costs, we study the root causes of slow response times, saving
resources by focusing on common causes. We also trade quality---e.g.,
slightly degraded search engine results--- for lower hardware costs when
appropriate. For broader impact, the PI will work to transfer the
technology to national and local companies.